Mathematical Sciences: Presidential Young Investigator

8857452 Bestvina This Presidential Young Investigator Award will enhance support for Mladen Bestvina's research in geometric topology, particularly (1) group actions on trees (2) limit sets of Kleinian groups, (3) the Hilbert-Smith conjecture.